Superfluid Helium in Porous Materials

Helium films on sintered ceramic alumina powders will be studied using the torsional oscillator technique to measure superfluid fraction and other properties. Core structure of the vortices in thin films will be studied as a function of temperature, film thickness, and helium-three impurity concentration. A second experimental program will study third and fourth sound propagation in helium-four contained in ceramic materials of very low porosity. The predicted divergent index of refraction will be studied near the percolation threshold for pores in the ceramic. The surface index of refraction will also be studied in situations with low helium concentration in the ceramic.